Equipment for an Undergraduate Field Station Laboratory to Provide On-Site Instruction in Terrestrial and Aquatic Ecology.

The Biology Department is unusually fortunate in owning a 300-acre field station located within 20 miles of the main campus. The field station contains a number of different terrestrial and aquatic habitats: prairies and forest, ponds and river. Located at the field station is a laboratory building staffed by a resident naturalist. The field and laboratory equipment provided through this award are making this field station self-sufficient and more fully functional. The new field equipment includes soil and water test kits; the laboratory equipment includes microscopes, balances, drying ovens, and a microcomputer for data storage and analysis. Since the station already has adequate dormitory space, the addition of a fully equipped laboratory allows students to live and conduct meaningful research on site. The equipped station laboratory is particularly valuable during the January interim term when students may study a single topic in depth. With guidance from the resident staff and from the two Ph.D. ecologists on the Biology faculty, the field station now is able to introduce substantial numbers of undergraduates to a high degree of sophistication in studying ecological research methods.